Collaborative Research: The Role of Larval Orientation Behavior in Determining Population Connectivity

Understanding how far young fish move away from their parents is a major goal of marine ecology because this dispersal can make connections between distinct populations and thus influence population size and dynamics. Understanding the drivers of population dynamics is, in turn, essential for effective fisheries management. Marine ecologists have used two different approaches to understand how fish populations are connected: genetic methods that measure connectivity and oceanographic models that predict connectivity. There is, however, a mismatch between the predictions of oceanographic models and the observations of genetic methods. It is thought that this mismatch is caused by the behavior of the young, or larval, fish. The objective of this research is to study the orientation capabilities of larval fish in the wild throughout development and under a variety of environmental conditions to see if the gap between observations and predictions of population connectivity can be resolved. The project will have broader impacts in three key areas: integration of research and teaching by training young scientists at multiple levels; broadening participation of undergraduates from underrepresented groups; and wide dissemination of results through development of a website with information and resources in English and Spanish.

The overall objective of the research is to investigate the role of larval orientation behavior throughout ontogeny in determining population connectivity. This will be done using the neon goby, Elacatinus lori, as a model system in Belize. The choice of study system is motivated by the fact that direct genetic methods have already been used to describe the complete dispersal kernel for this species, and these observations indicate that dispersal is less extensive than predicted by a high-resolution biophysical model; E. lori can be reared in the lab from hatching to settlement providing a reliable source of larvae of all ages for proposed experiments; and a new, proven behavioral observation platform, the Drifting In Situ Chamber (DISC), allows measurements of larval orientation behavior in open water. The project has three specific objectives: to understand ontogenetic changes in larval orientation capabilities by correlating larval orientation behavior with developmental sensory anatomy; to analyze variation in the precision of larval orientation in different environmental contexts through ontogeny; and to test alternative hypotheses for the goal of larval orientation behavior, i.e., to determine where larvae are heading as they develop.